AMP-SP: RTP/AMP Partnership at the National Museum of Natural History

HRD-9732790 Kress The Smithsonian Institution proposal is designed to prepared talented undergraduate students for research careers in the natural history sciences. The primary strategy is via an intensive summer experience entitled National Museum of Natural History Research Training Program , which is centered on guided research in systematic biology and natural history., The standard summer ten-week program focuses on a research project guided by a research advisor who is one of over 100 Ph.D. level scientists on staff at the Smithsonian. Specifically, the student participant in conjunction with the research advisor, develops and tests a scientific hypothesis employing appropriate techniques, and communicates the results in written manuscripts and oral presentations. Field trips, discussions, lectures, demonstration and tours provide a broad and balanced view of natural history careers in the program protocol. In addition, while in residence, all participants are fully integrated into the Smithsonian, including interaction with their peers, research advisors, and staff scientists. The Smithsonian has a very successful track record in operating a summer program in natural history and systematic biology. Therefore, it is expected to be successful in encouraging underrepresented minorities to pursue careers in these life science fields.